REU Site in Mathematical Cryptology

This Research Experience for Undergraduates is a joint effort of Northern Kentucky University and the University of Cincinnati. It will operate for three summers, and each summer six talented undergraduate students will be engaged in the study of mathematical cryptology. Participants will be mentored by one faculty member from Northern Kentucky University, one faculty member from the University of Cincinnati, and two graduate students from the University of Cincinnati. Participants will be involved in attacking unsolved problems in mathematical cryptology. The mentors will guide participants to develop independence as mathematical researchers, introduce participants to the mathematical community, encourage well qualified participants to consider graduate school in mathematics or consider a career in mathematics, help participants develop their skills in orally presenting mathematics, and help participants write a mathematical paper.

Participants will be housed at Northern Kentucky University, which is located in Greater Cincinnati, and will be provided with housing and meals. The program will also provide a stipend for each participant, travel support to and from the Northern Kentucky University campus, and travel support for each student to participate in one professional conference during the academic year that follows their participation in the program.

The site is supported by the Department of Defense in partnership with the NSF REU program.